SREDS - Scattering and Recoiling for Electron Distributions and Structure

This project is in the general field of analytical and surface chemistry and in the subfield of ion beam/solid surface interactions. A new instrumental technique will be developed from time of flight analysis of scattered and recoiled neutral and/or ionic species from a solid surface bombarded with ions of 0.1 - 5.0 kiloelectron volt energies. This technique will permit determination of surface atomic structure and electron density distributions in a single experiment. Systems to be investigated include clean and adsorbate covered surfaces of metals, semiconductors, and inorganic salts and oxides. This new surface analytical technique is 100 to 1000 times more sensitive than conventional ion scattering spectrometries, is highly surface sensitive (two atomic layers) and can detect light elements such as hydrogen. It will markedly extend current knowledge of the chemistry and physics of surfaces.